Methods of Hamiltonian Mechanics for Nonlinear Wave Equations

The research described in this proposal is on a class of linear and nonlinear
partial differential equations (PDE)which share the property that they can be
written in the form of a Hamiltonian system with infinitely many degrees of
freedom. Principal examples include nonlinear wave equations, nonlinear
Schroedinger equations and Euler's equations for water waves. The analogy
with dynamical systems motivates a number of basic questions. (1) The
existence of invariant tori for the nonlinear partial differential equations
involves extensions of KAM theory to infinite dimensional settings.
Implications of these results include the existence of solutions of nonlinear
evolution equations which exist for all time and are recurrent. Techniques
that have been developed for PDE also have bearing on several open problems in
classical dynamical systems concerning the persistence of resonant tori.
(2) A normal forms transformation of a Hamiltonian PDE gives details of its
essential nonlinearities, and it has applications to Nekhoroshev stability
results and to a proof of the Arnold condition of genuine nonlinearity.
(3) Starting from a normal forms transformation, long time existence results
for nonlinear PDE are important in a mathematically rigorous analysis of the
classical asymptotic regimes of mathematical physics. In addition the proposer
will address a number of related questions in the theory of PDE. (4) Estimates
of dispersive smoothing for linear and nonlinear Schroeinger equations depend
upon the scattering properties of bicharacteristics, and estimates of this
form play a role in the study of the initial value problem for data of low
smoothness. (5) The classical problems of standing waves in two dimensional
water waves and traveling waves in three dimensional water waves are instances
of problems in PDE which exhibit small divisors, and analytic results involve
delicate questions of convergence.

Celestial mechanics, the problem of describing the motion of planetary
bodies, has always intrigued mathematicians and motivated their discoveries.
At the beginning of this century, the French mathematician H. Poincar' and his
American contemporaries G.D. Birkhoff and G.W. Hill, essentially revolutionized
the subject with their work, bringing it conceptual clarity and introducing
powerful new analytic techniques. This work gave rise to a new paradigm in its
field, and contributed to the birth of many modern branches of mathematics. An
important question was and remains the n-body problem; the problem of stability
of the motion of n planets in their mutual gravitational attraction. Indeed in
the 1960's, 50 years after the death of Poincar'e, the development of a theory
by three mathematicians, A.N. Kolmogorov, V.I. Arnold and J. Moser (it is now
called KAM theory) made a significant contribution to the field. At the time of
its development there were physical applications to the stability of high
energy particles in a cyclotron, as well as to the classical questions of the
stability of our solar system or to other important systems in mechanics. The
equations which describe the motion of n bodies are examples of ordinary
differential equations. It was a question at the time of the development of
KAM theory whether such stability results could be extended to partial
differential equations. These describe the evolution in time of a continuous
medium such as a fluid, a gas, and electromagnetic field or an elastic solid.
The analogy between mechanics and the motion of a continuum is mathematically
quite elegant. However the n-body problem is a finite dimensional one, while
problems of partial differential equations viewed with this analogy in mind
are inherently infinite dimensional, and this summarizes the essential
mathematical difficulty of extending the methods. The principal content of
this research program is the extension of some aspects of the analytic
techniques of Hamiltonian mechanics to physically important partial
differential equations. These results will have some significant consequences
in a variety of diverse physical applications, including the study of ocean
waves, the propagation of signal pulses in optical fibers, and in the